Engineering Research Equipment: Gas Chromatograph with DataSystem

This equipment grant will be used to purchase a gas chromatograph for research projects related to combustion and fuels. This system will be able to accept either packed columns or capillary columns, have injectors for either gas or liquid samples, and have the capability of accepting various detectors. The associated data system will be able to automatically control the GC and acquire data for long- duration experiments. Specific projects for which this instrument will be used are: chlorine-catalyzed oxidation of chlorinated organic solvents, combustion synthesis of fullerenes, development of diode lasers as hazardous waste incinerator monitors, and oxidation of aromatic compounds by singlet oxygen. The projects for which this instrument will be first used are all in the area of chemical kinetics and will have immediate practical applications such as in hazardous waste destruction or in synthesis of new materials.